Crystal Structures and Functions of Limulus Hemocyanin

Karen A. Magnus
MCB9817090

1. Technical

The three-dimensional structures of oxygenated and deoxygenated forms of
Limulus subunit II hemocyanin have clarified the molecular controls of
function in these large oxygen-transport proteins. The native hemocyanin
of Limulus consists of 48 subunits with eight types of polypeptide chains.
Each subunit type is capable of reversibly binding oxygen at a dicopper
active site. The subunits differ in primary structure, ligand affinities,
and sensitivity to assorted allosteric effectors. This study is designed
to test mechanistic ideas using a combination of biochemical, biophysical
and molecular biological techniques. Hemocyanin structures will serve as
prototypes for a large class of multisubunit assemblies that require
multiple components for complete function. Comparison of the structure of
Limulus II hemocyanin with preliminary structural results for subunits IIIa
and IV suggests the mechanism for subunit II cooperativity may well be
general for all arthropod-type hemocyanin subunits. cDNA has been isolated
from a Limulus library that codes for a 24 residue peptide identical in
sequence to part of subunit a from a southeast Asian horseshoe crab. Once
the nucleic acid sequences for the subunits are available, construction of
designed variants and smaller reversible oxygen-binding entities will be
pursued. The structure of subunit IIIa is incomplete, providing further
insight into the chemistry of the dicopper active site. Protons, divalent
cations and specific anions act as modulators of oxygen affinity in Limulus
hemocyanin.

2. Non-techincal

Oxygen transport from the environment to the tissues is vital for the
survival of multicellular organisms. In humans, this function is carried
out by the protein hemoglobin, the red pigment in blood. In some
arthropods such as lobsters, crabs, crayfish and horseshoe crabs, the
oxygen transport protein is hemocyanin ("blue blood"). The hemocyanin of
the horseshoe crab is about 3.3 x 106 Daltons and is made up of 48 subunits
of eight different types. All of the subunit types can reversibly bind one
molecule of oxygen at their dicopper active sites. When the subunits are
assembled into the 48mer, they bind oxygen cooperatively--once the first
molecule of oxygen is bound it becomes easier to bind subsequent molecules
and once the first molecule of oxygen is released at the tissues, later
ones come off more readily. The cooperative binding of oxygen is
regulated by allosteric effectors such as chloride and calcium ions. The
goal of this project is to understand in molecular detail how this complex
protein assembly carries out its physiological functions. The three
dimensional structures of all eight subunits and their complexes are being
determined using the methods of x-ray crystallographic analysis. Study of
structures of hemocyanin subunits with and without oxygen bound suggested
which amino acids are key in effecting cooperative, reversible ligand
binding. By using the techniques of molecular biology, the proposed key
amino acid residues can be changed and the altered structures physical
properties studied to test and extend the mechanism. The structures of
various forms of the whole hemocyanin molecules will also serve as a
prototype for larger more complicated structural assemblies.